Wide-Bore 8.5T NMR Spectrometer Console Replacement

The objective of this project is to upgrade the current console of the 8.5 T Bruker NMR spectrometer at the Center for NMR Research and Development at the University of Alabama at Birmingham. This spectrometer supports five Investigators known for their research in myocardial bioenergetics and cation homeostasis. Experiments designed to address important biological questions range from continuous measurement of metabolic variables in intact hearts to measurement of tissue extract samples to structural work on chemical samples. The requested spectrometer upgrade is considered critical for maintenance of research progress of the facility. It will also be important for educational objectives as most of the research at this facility is performed by graduate students and post-doctoral fellows.